Quantitative Nondestructive Evaluation for Concrete Constructed Facilities

The end objective of the research is to correlate the structural condition of portland cement concrete facilities with the test results using electromagnetic waves, eddy current, and ultrasonic techniques. Electromagnetic and ultrasonic methods have previously shown promise for achieving this objective. Eddy currents are used as complementary technique. However, before the end objective can be addressed, it is important to clearly establish a scientific/engineering data base from which the electromagnetic, electrical, and ultrasonic properties of portland cement structures can be obtained. This database will provide insight and understanding of other problems arising from the interaction of these electrical/acoustic methods with concrete structures and will be made available to other researchers considering similar NDE methods. This data base represents the first attempt to set up and carry out, under controlled conditions, a comprehensive set of measurements to characterize a select set of concrete specimens using a basic electrical and ultrasonic techniques that have only been estimated in previous research.